Mathematical Sciences: Fourier Coefficients of Metaplectic Forms

9400882 Lieman This award funds the research of Professor Daniel Lieman on properties of zeta functions of specific elliptic curves. This work is in keeping with a major theme in modern number theory, that discrete geometric information can be studied analytically. This approach seems to be very effective for problems in number theory, particularly diophantine problems. This work falls in the general area of Number Theory. Number Theory is the study of properties of the whole numbers and is the oldest branch of systematic mathematics. Number theorists often study diophantine problems where equations are required to have exact numerical solutions. In modern days, these diophantine problems have furnished the driving force to creation of new theories in many other parts of mathematics. Recently Number Theory and diophantine methods have found astonishing applications in theoretical computer science and communication.